ITR/SY(CISE): Compositional Connectors

NSF ITR Proposal #0113810
Compositional Connectors
David Garlan

For systems composed from independently developed parts, specialized forms of
interaction are often needed to bridge component mismatches or to achieve
extra-functional properties (e.g., security, reliability), making the design and
implementation of these interaction mechanisms a critical issue. Unfortunately,
system developers have few options: they must live with available, but often
inadequate, generic support for interaction (such as RPC), or they must
handcraft specialized mechanisms at great cost.

This research investigates a new approach whereby interaction mechanisms are
constructed compositionally. Specifically, basic connectors (such as RPC or
data streams) can be augmented with selected adaptations or enhancements to
produce a more complex connector that meets the system requirements. This
work will investigate the hypothesis that (a) there exists a collection of
general-purpose transformations that can be applied to connectors to produce
increasingly rich forms of interaction, and (b) tools can be built to automate
the application of these transformations to existing interaction mechanisms.
If successful, this research will reduce the cost of component integration by
partially automating the production of complex interaction mechanisms, improve
the quality of systems by making it simple to add security and dependability
features, and develop new foundations for specifying and reasoning about complex
interaction mechanisms.